International Linear Collider Workshops at Snowmass: Snowmass, CO; August 14-27, 2005

This is a request for support to help cover the costs of travel for Early Career Scientists and Engineers to make it possible for non-tenured faculty, postdoctoral-level scientists and engineers, graduate and undergraduate students to fully participate in the Snowmass workshops on the International Linear Collider. They will take place from August 14-27, 2005 in Snowmass, CO. The funds will be used to subsidize the registration costs, travel, and housing expenses of early career participants or any combination of these.